Collaborative Research: NeTS: SCORE: Semantic Communications Framework for Low-Latency and Reliable Edge-Assisted Cooperative Perception

Connected and autonomous vehicles have the potential to make roads much safer and transportation more efficient by sharing information through wireless networks. This kind of data sharing, known as cooperative perception, allows vehicles to see around corners and avoid accidents by using information from other vehicles and roadside sensors. However, the large amount of data generated by these sensors can congest wireless networks, leading to delays that could compromise safety. This project develops a new way for vehicles and infrastructure to communicate by focusing only on the most important information needed for safe driving. By making these communication systems smarter and faster, the research helps ensure that safety-critical information reaches vehicles reliably and on time. These advances support the national interest by improving road safety, reducing accidents, and training of students in next-generation technology.

The project introduces a goal-oriented semantic communications framework designed to achieve scalable and reliable cooperative perception in vehicle-to-everything (V2X) networks. The research is organized into three interrelated thrusts. First, the research team will develop machine perception-guided data processing techniques to compress and fuse sensor data while retaining the essential information required for machine-learning-based cooperative perception algorithms. Second, they will develop an adaptive framework that prioritizes safety-critical data to meet the strict timing and reliability requirements of autonomous driving. Third, they will use an integrated modeling-based and data-driven approach to predict and minimize end-to-end delays throughout the communication pipeline. The effectiveness of these approaches will be evaluated through realistic simulations and experiments on specialized connected vehicle testbeds. This project will advance the field of next-generation wireless systems and signal processing while providing hands-on research experiences for undergraduate and high-school students.